REU: Consequences of Leaf Lifetime for Photosynthetic Physiology, Secondary Metabolism, and Anatomy in Tropical Plants

The relationship between leaf longevity and the physiology and secondary metabolite production among leaves varying in longevity is an area severely lacking in information. This proposal, through various hypotheses and rigorous experimental designs, seeks to better understand these relationships and to provide baseline data about the interactions between leaf longevity, leaf physiology, and secondary metabolite production. Information gained from this study will be useful in understanding how plants with leaves of varying longevity may defend these important photosynthetic tissues against herbivores and pathogens. Such information would be useful in theoretical considerations dealing with photosynthesis of crop and forest systems, and in describing how the polyphenolic defenses of plant species in natural communities have evolved. Furthermore, compounds or structures will be identified that may not be known and may prove useful as natural insecticides. For example, on the basis of preliminary data submitted in the original proposal, none of the 15 known phenolic compounds for which we screened tissue were present in the plants from Panama.